Topological Field Theory and Integrable Systems

DMS-0072508
Ezra Getzler

The Gromov-Witten invariants of a compact symplectic
manifold are the correlation functions of a
two-dimensional topological gravity with background V.
These invariants generalize such enumerative invariants
of algebraic geometry as the number of curves of genus g
and degree d through 3d+g-1 points in the plane. For each
genus g, the genus g Gromov-Witten potential of V is the
generating function of the genus g Gromov-Witten invariants.
This project intends to study the differential equations
satisfied by these potentials and their geometric significance.
The genus zero Gromov-Witten potential satisfies the
Witten-Dijkgraaf-Verlinde-Verlinde equation, which finds
its geometric form in Dubrovin's theory of Frobenius manifolds. Previous work of the PI has shown that the genus one
Gromov-Witten potential satisfies a differential equation
defined on any Frobenius manifold. Moreover, Dubrovin and
Zhang have shown that this equation has a unique solution
for any semisimple Frobenius manifold. The PI proposes to
investigate analogous situation for genus g greater than
one and its manifold consequences.

It is well known that there is one line through two points
in the plane. Similarly, there is one quadratic curve through
three points in the plane. The theory of Gromov-Witten
invariants is a tremendous generalization of this: one
generalizes from lines to general algebraic curves, and
from the plane to more general spaces. The resulting counting
problems are related to the theory of such integrable systems
as the Kortweg-de Vrijs equation describing waves in shallow
water. In this project, following ideas of Dubrovin and Zhang,
we attempt to understand this link better. Thus, this
project investigates significant and surprising developments
in enumerative geometry that were originally motivated physics,
and potentially should cast light on a number of questions of
relevance to modern physics.